Secure Data Distribution and Access in Large Sensor Networks

Sensor networks, with their massive information acquisition potential,
represent a mechanism by which Information Technology can be used to
mitigate the vulnerabilities of society with regard to natural and
manmade catastrophic events. Two critical components of information
management in sensor networks are: (a) secure data distribution i.e.,
identifying secure in-network sensor data storage sites and determining
their specific data contents in order to maximize overall data security
and minimize routing overhead to these sites, and (b) data access via
maximally secure energy-constrained query reporting between data
nodes. These problems cannot be solved in a stand-alone manner, since
optimal solutions in one area may lead to sub-optimal solutions in
others. This work proposes the development of a unified analytical
framework using game-theoretic techniques. The proposed holistic
information management framework will enable the successful acquisition
and efficient utilization of sensornet data by identifying storage
repositories, data contents, and secure query reporting schemes that
are optimally suited to each other. Efficient algorithms for the above
problems will be derived using a new Data Security Index metric which
explicitly accounts for the actions of intelligent opponents and models
sensors as intelligent agents cooperating to achieve network objectives,
such as maximal data security and data access.